Effect of Finite Size Joints on Strength and Deformability of Rock Masses

9800407 Kulatilake "Effect of Finite Size Joints on Strength and Deformability of Rock Masses" Civil and mining engineers face design and construction tasks associated with geotechnical systems which are in or on discontinuous rock masses. Rock mass strength and deformability depend on a) the discontinuity (e.g., joints, fractures, faults) network, b) the geomechanical properties of the discontinuities, c) the geomechanical properties of the intact rock, d) the in situ stress system, and e) the loading/unloading stress path. Due to the complex nature of natural discontinuity patterns in rock, and uncertainties associated with estimating factors a) through e) above, the prediction of mass properties of rock at a large scale using the available stress analysis techniques and a limited field and laboratory investigation presents a great challenge for the rock engineering profession. This research focuses on the effect of joints on strength and deformability of rock masses. Primary objectives of this research are to establish the following relationships for jointed blocks made out of two model materials: a) the modulus of deformability in any direction as a function of the fracture tensor (a combined measure of joint geometry parameters component in that direction, deformational properties of the intact model material and joints, and the confining stress, and b) the strength in any direction as a function of the fracture tensor component in that direction, strength properties of the intact model material and joints, and the confining stress. Biaxial loading tests will be performed on jointed block samples having numerous joint geometry configurations. Model materials will be chosen to satisfy the similitude requirements compared to soft brittle rocks. Secondary objectives are to establish some guidelines to estimate equivalent continuum properties for jointed model material and rocks with respect to both strength and deformabilit y properties.. ***